Acquisition of a High-Resolution ICPMS for the Plasma Spectrometry Facility at COAS

9977655
Klinkhammer
This Major Research Instrumentation award to Oregon State University provides a high resolution inductively coupled plasma-mass spectrometer for oceanographic and environmental sciences research. It will be used for a wide variety of research projects, and will be integrated into a facility which is heavily used by OSU researchers, as well as available to outside researchers on a cost-recovery basis. The project is supported by the Division of Ocean Sciences at NSF. Oregon State University will provide cost-share support for 30% of total project costs.
***